Linking Mathematics Education Policy Reports to State Initiatives for Systemic Change

Poor U.S. student performance on national and international assessments has prompted the development of a national goal for "U.S. students to be first in the world in mathematics and science achievement by the year 2000." Many believe we can meet this goal only if the entire education system in every state is restructured to promote higher levels of achievement for all students. Mathematics has taken a national leadership role in developing consensus on a clear vision of what curriculum, student assessment and teacher preparation must look like from kindergarten through college to be successful in improving mathematical literacy among our youth. The thoughtful work of the mathematics education community provides significant information on policy and practice issues related to mathematics education. Likewise, state-sponsored restructuring initiatives (such as the Re: Learning effort) over the past three to four years have provided successful strategies for systemic change. However, we have not yet been successful in linking these two efforts - mathematics education reform and state efforts in systemic change. While the mathematics education community was developing consensus on new directions for mathematics education, policy makers were developing consensus on the role of policy in supporting systemic change. There is now agreement that success in changing the education system will be determined by how well state policies support and encourage exemplary classroom teaching and learning. The mathematics reports provide this vision for teaching and learning in mathematics. The task, now, is to translate this vision into supportive state policies which help schools and districts commit to the systemic changes needed for improved student learning.